Large-Scale Structure: Decoupling, Dark Ages, Today

AST-9970519
Large Scale Structure: Decoupling dark ages, today

Marc Kamionkowski

Dr. Kamionkowski is conducting a theoretical study to maximize the science return for new observations of the large scale structure of the universe. The research will focuses on two issues: (1) how can one probe the evolution of large scale structure during the time between the decoupling time (near a redshift about 1100) and the structure delineated by current surveys; and (2) how can one reconstruct the distribution of mass in the Universe today from the observed distribution of luminous matter.

Dr. Kamionkowski is exploring reionization from an early generation of gravitationally collapsed objects that might produce several signatures in the cosmic microwave background; for example, damping of the acoustic peaks in the power spectrum, secondary anisotropies at smaller angular scales, additional large angle polarization, and distortions to the cosmic microwave background energy spectrum.
***